Professional Identity Development in Civil Engineering Students with Disabilities

Currently available statistics suggest that between 11 and 15% of U.S. college students identify as individuals with disabilities, yet little work addresses identity development within this population broadly, and even less explores their experiences within engineering. Calls from both disabilities studies and national organizations such as the American Institute for Research consistently ask educators to broaden participation in Science, Technology, Engineering and Math fields to include individuals with disabilities. Therefore, this work targets an urgent need in engineering education research. The study lays a foundation for broadening participation in engineering by enabling us to better understand the supports and barriers students with disabilities experience. Educators will be able to use the findings to develop inclusive educational experiences that promote identity formation, diversity, and universal design. At the same time, because the students will are followed into the workplace, the findings can benefit engineering employers as they hire engineers with disabilities, again focusing on systems and structures that support inclusion and accessibility. Moreover, the project will build bridges between the engineering education and disabilities studies community by establishing partnerships and bolstering ongoing conversations within engineering that help to move disability from the margins to the center.

The project addresses the call for studies on the "development of identity as an engineer and its intersection with other identities" by conducting a longitudinal study of students with disabilities in civil engineering. The project will use constructivist grounded theory to study two cohorts over three years. The first cohort follows 20 students from the fall of their first year through the spring of their junior year, with interviews twice a year (early fall and late spring). The second cohort, run concurrently, follows 20 students from spring of their junior year through their first year in the workplace, again with interviews twice a year. This approach spans the full undergraduate experience as well as the transition to work, and provides a rich data set from which to develop a theory of identity formation for this population.

Consistent with grounded theory, the project does not impose an existing theory on the data; however, the understanding of identity broadly draws on social identity theory (SIT), which treats identities in terms of group membership developed through comparisons of values and behaviors members make with one another and with individuals belonging to other groups. This approach is consistent with existing studies of individuals with disabilities in college as well as with studies of professional identities, and allows the project team to situate the work within the broader landscape of identity research in engineering. The project addresses a significant gap in research on the professional formation of engineers by extending an emergent theoretical model of identity development in civil engineering to students with disabilities as they advance through their degree program and into the workforce. It provides significant contributions to research on identity development in engineering broadly, research on diversity and inclusion in engineering, and research on disability studies in higher education - issues that, to date, have seen little integration. The longitudinal approach advances our understanding of undergraduate development by capturing both how and why individuals with disabilities merge and negotiate personal and professional identities through these changes over time. The model developed in this study can then be used by researchers in other engineering fields and, potentially, beyond engineering to facilitate a more robust and nuanced understanding of how students with disabilities develop identities in college.